SBIR Phase I: Multiplexed suspension array for rapid, point-of-care molecular diagnostics

This Small Business Innovation Research (SBIR) Phase I research project aims to develop a microbead-based suspension array product for molecular diagnostics (genetic screening) that can make multiplexed measurements in near-real-time without the need for sample amplification and fluorescent labeling.

The technology could have a direct positive impact on the diagnostic market for both humans and animals and will enable healthcare providers to make more educated assessments of a patient's disease profile and potential responsiveness to different therapeutic modalities.